Soil Decontamination Using Electrochemistry

The objective of this project is to determine the technical feasibility of process to biologically degrade chlorinated hydrocarbons by sequentially subjecting them to anaerobic and aerobic degradation systems. The feasibility of this approach will be determined using a laboratory scale aquifer simulator in which ground water is selectively amended to stimulate growth of appropriate microbial communities and is recirculated through contaminated soil. The initial target compound for this work will be tetrachloroethylene, a chlorinated solvent that has been spilled and disposed of on soil and subsequently entered ground water, causing widespread aquifer contamination. The proposal leading to this Phase I award was submitted and evaluated in accord with NSF 87-8, NSF Program Solicitation, Small Business Innovation Research.